Export Agriculture and Development: Towards a Comparative Study

Project Objectives: The primary objective of the project is to develop a competitive research proposal on "Export Agriculture and Development: Towards a Comparative Study." A first specific objective is to extinct and refine from the literature a set of testable hypotheses concerning the conditions under which export sector expansion leads to some form of development. Broader Significance of the Project: Support of the project will assist a well trained black, sociologist to improve his regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.